Development of a VLSI System for Improved Monitoring and Stimulating Action Potentials of Neuronal Networks

The instrumentation to be developed consists of a custom-designed 16-channel analog very-large-scale integrated (VLSI) circuit chip, an improved 64-lead multiple-microelectrode plate (MMEP) assembly, and the necessary circuit boards and controller units to incorporate four of the 16-channel chips for the sensing and stimulation of action potentials in cultured neuronal networks. This instrumentation will be used in the determination of basic neuronal network organization and function through the analysis of stimulated and unstimulated network output.